CPS: Synergy: Learning to Walk - Optimal Gait Synthesis and Online Learning for Terrain-Aware Legged Locomotion

Legged robots have captured the imagination of society at large, through
entertainment and through the dissemination of research findings. Yet,
today's reality of what (bipedal) legged robots can do falls short of
society's vision. A big part of the reason is that legged robots are
viewed as surrogates for humans, able to go wherever humans can as aids
or as assistants where it might also be too dangerous or risky. It is
in the expectation of robustness and walking facility that today's
research hits its limits, especially when the terrain has granular
properties. Impeding progress is the lack of a holistic approach to the
cyber-physical modeling and control of legged robots. The vision of
this work is to unite experts in granular mechanics, optimal control,
and learning theory in order to define a methodology for advancing
cyber-physical systems (CPS) involving a tight coupling of the physical with
the cyber through dynamic interactions that must be learned online. The
proposed work will advance the science of cyber-physical systems by more
explicitly tying sensing, perception, and computing to the optimization
and control of physical systems whose properties are variable and
uncertain. Achieving reliable, adaptive legged locomotion over terrain
with arbitrary granular properties would transform several application
domain areas of robotics; e.g., disaster response, agricultural and
industrial robotics, and planetary robotics. More broadly, the same
tools would apply to related CPS with regards to terrain aware
exoskeleton and rehabilitation prosthetics for persons with missing,
non-functional, or injured legs, as well as to energy networks with
time-varying, nonlinear dynamics models.

The CPS platform to be studied is that of a bipedal robot locomoting
over granular ground material with uncertain physical properties (sand,
gravel, dirt, etc.). The proposed work seeks to overcome current
impediments to reliable legged locomotion over uncertain terrain type,
which fundamentally relies on the controlled interaction of the robot's
feet with the physical environment. The research goal is to improve the
perception and control of legged locomotion over granular media for the
express purpose of achieving robust, adaptive, terrain-aware locomotion.
It revolves around the hypothesis that simple models with decent
predictive performance and low computational overhead are sufficient for
the optimal control formulations as the compute-constrained adaptive
subsystem will both learn and classify the peculiarities of the terrain
online. The main research objectives will involve: [1] a validated
co-simulation platform for legged robot movement over granular media;
[2] terrain-dependent, stable gait generation and gait transition
strategies via optimal control; [3] online, compute-constrained learning
of granular interactions for adaptation and terrain classification; and
[4] validated contributions using experimental testbeds involving
variable and unknown (to the robot) granular media. Given the high
value of the robotic platforms and the research with regards to outreach
and participation, they will be used as outreach tools and to create new
educational modules for promotion of STEM fields. Further, the
multi-disciplinary nature of the work will be highlighted in order to
emphasize its importance.